Light-Front Quantum Chromodynamics

The proposed work is aimed at using renormalization group techniques to construct light-front Hamiltonians from QCD. The results of this approach include identifying forms for confining and chiral symmetry breaking interactions, so that a low-energy picture of quarks and gluons with few degrees of freedom can be constructed with a direct connection to QCD. ***